REU Site: Novel Technologies for Pollution Prevention

This award provides continued funding for a 5-year REU Site for Novel Technologies for Pollution Prevention, at the University of South Carolina at Columbia, under the direction Dr. Michael D. Amiridis. This 10-week summer program will provide 11chemical engineering undergraduate students, from other institutions, with research experiences obtained from projects focusing on the development of new technologies with positive environmental impact. Each student will be assigned a faculty member as her/his research mentor. It is anticipated that the students will be grouped into larger research teams in the following areas: Catalytic, Separation, and Electrochemical Technologies. In addition, the students will tour industrial sites, attend weekly seminars, workshops on graduate studies and ethics in science and engineering, and participate in a final symposium as well as social activities.